A Workstation Environment for an Undergraduate Computer Graphics Sequence

This project will set up a graphics laboratory of six Sun 3/110 workstations to support a sequence of undergraduate graphics courses. Included will be a new course to cover aspects of graphics such as three dimensional modeling, shading and animation.